Acquisition of State-of-the-Art High-Efficiency, High Resolution, Gamma Ray Detector

9732536 Baskaran This award to Texas A&M University will provide a new high-resolution gamma ray detector for use in the existing radioactive counting laboratory in Galveston. It will provide needed additional capability for studies of marine processes, particularly in the area of colloidal chemistry of the waters of the Gulf of Mexico. ***